STTR Phase I: Smart Flexible Piezoelectric/Polymer Composite Nanostructures

The primary goal of this Small Business Technology Transfer (STTR) Phase I project is to produce high-density PZT ceramic/polymer nanostructures. Piezoelectric, ceramic actuation technology, which forms the basis for smart structures because of quick spouse, low power 'consumption, compactness and ruggedness has two key process limitations-low generativeforce and low displacement. High density, a primary requirement for these ceramic materials can be obtained by a unique processing technique developed at MMI. In this Phase I project, MMI and Drexel University, Philadelphia, PA will collaborate to work on the synthesis and rapid consolidation of nanocrystalline PZT/polymerflexible composite smart nanostructures. Upon completion of this project this collaborative effort will have established the effects of rapid processing on performance characteristics, including piezoelectric, dielectric and viscoelasitc behavior of the new smart structures. In Phase II these composite nanostructures will be commercialized for Active Vibration Control.
PLZT/polymer composite flexible actuators will have widespread applications in Optics, Photonics
Measuring Technology (scanning microscopy, mirror positioning, adaptive optics, auto focus systems), Disk Drives (MR head testing. vibration cancellation), Microelectronics (wafer and mask positioning, critical dimension, measurement pumps and shock waves)